A Neural Network Realization of an Image Processing System

The PI has done extensive, respected work in the past in studying the visual system of the brain. She has also developed a new learning algorithm, alopex, which is respected by those who know of it. In this project, she plans to build and test an image processing and pattern recognition system based on this work. A VLSI implementation will also be designed.